Research Initiation: A Test Bed of Integrated Process Planning Systems

The past two decades have witnessed the development of many Computer Aided Process Planning Systems, each of which has specific advantages and disadvantages. Among these systems there exists considerable data overlap; yet the data cannot be interfaced, exchanged, integrated, or communicated because the data structures are not standardized. Only limited investigation has taken place with respect to the problems, and some aspects have been ignored altogether. The object of this project is to develop a test bed of integrated process planning systems, which can be used for testing flexibility and data standardization of a variety of process planning functions. The projects will be conducted in collaboration with the National Institute of Standards and Technology's process planning test bed laboratory.